Professional Development Award in Science, Technology, and Society

This one year, full-time award enables a philosopher who has specialized in issues of ethics, policy and agriculture, to develop his capabilities in the area of agricultural economics. His research focuses on value assumptions in agricultural economics and in the teaching of agricultural economics, and on the ethical implications of those assumptions. His host institution is the Agricultural Issues Center of the University of California, Davis. The director of the Center as well as several other agricultural economists will act as advisors to the project. During the course of the award, the investigator will audit undergraduate and graduate courses in order to gain formal training in the mathematics of agricultural economics. This study will enable him to investigate whether and how these mathematical tools incorporate or express value assumptions and may magnify selected human impacts. With guidance from his advisors, he will analyse textbooks, study their use in the classroom, and discuss the texts and their views of them with faculty. He will examine relevant research, attend seminars and lectures, and interview economists, in order to identify value assumptions that are incorporated in their work. Based on his research, he will prepare papers, distribute them, and present them in seminars, for further discussion and evaluation. Publications will explore the implications of these findings for teaching agricultural economics, and for enhancing the ability of agricultural policy sciences to incorporate explicit attention to values previously overlooked or treated as "non-economic" or "externalities." This project addresses a central issue in ethics and values studies in science, technology and society: the impact of values on the development and use of scientific research. The investigator and his host specialists and host institution are uniquely well-qualified to undertake and support this project; collaborative efforts are likely to continue after the period of the award. Results are likely to be appropriately disseminated and useful. An award in the amount of $43,000 is therefore recommended.